Renovation and Enhancement of the Microelectronics Facility

The Microelectronics Facility at Brown University requires funds to upgrade clean-rooms. One thousand square feet of facility space will be upgraded to class-1000, or better, clean-room grade. In addition, some obsolete and broken equipment will be replaced. It is proposed that the funds be used to purchase rapid thermal processors and plasma-enhanced chemical vapor deposition equipment. Replacements or upgrades will be made to rf- sputtering systems, furnaces and vacuum equipment.